National Science Foundation Alan T. Waterman Award

WPC#" 2 ! B P Z Courier 10cpi #| m ivers (Scalable) Univers Bold (Scalable) HP LaserJet IIID hange HPLASIII.PRS x @ , \ , MX @ #| x ivers (Scalable) 2 S S Y " m ' ı ^CCd~~ CCC~ CCCC~~~~~~~~~~CC h ~ so 8o k w ~ zCCCddCkskskJss00k0 ssssFdJso oo`YdY C ~~ ~~~CCCC ~~~~~~ d~z0 k k k k k ksksksksk80808080 s s s s s s s s s o k s s s o sws k k k k k k k ssksksksk s s s s s s s s80808080 `o kk0k0k0kIk0 s s s s s F F F d d d d~J~J~J s s s s s s oz`z`z` sk0 s F d~J o o s s s C dd C CC/ N d ~~Choo~~ ~QQ ~NNdd~ N CC dd~ JJ ~~zz d d d zz Cd d N" d j dÕ dCC w xC d ~o~ dC~ d~s k z Uw d Y Y C C C C o~k od ks zU s k80 d h o o~U s swkww Y~ k ` o s00skk ko CC~~~~~ ~~ ooooooooooooooooooo ssssssssssssssssssss000000000000ssssssskkkkkkkkkkkk C s s 8 8 k dYC xCourier 10cpi Univers (Scalable) Univers Bold (Scalable) Univers Italic (Scalable) 2 ~ C C , q X ~ x P 7 X P < P P , R x P 7 P < P P , ! < p ?7 " m ' ı ^PPx PPP PPPP PP | C PPPxxP Y :: : TxY tkxk P PPPP x : C:C:C:C: C:C:C:C: t : : : W : T T T x x x x Y Y Y t t t : T x Y P xx P PP/ N x P| bb xx PP xx YY x x x Px x " x xÕ xPP xP x xP x f x k k P P P P x o f C: x | f k o t o :: PP ooooooo :::::::::::: P C C xkP x 2 9 Z " m ' ı ^PP| PPP PPPP PP | C PPPxxP Y :: : TxY txxx P$ PPPP x : C:C:C:C: C:C:C:C: t : : : ^ C T T T x x x x Y Y Y t t t : T x Y P xx P PP/ N x P| bb xx PP xx YY x x x Px x " x xÕ xPP xP x tP x f x x x P P P P x x o C> x x t o o x >> PP xxxxxxx >>>>>>>>>>>> P C C xkP x " m ' ı ^CCh~~ CCC~ CCCC~~~~~~~~~~CC h ~ so 8o k w ~ zCCCddCkskskJss00k0 ssssFdJso oo`ddd C ~~ ~~~CCCC ~~~~~~ d~z0 k k k k k ksksksksk80808080 s s s s s s s s s o k s s s o sws k k k k k k k ssksksksk s s s s s s s s80808080 `o kk0k0k0kNk8 s s s s s F F F d d d d~J~J~J s s s s s s oz`z`z` sk0 s F d~J o o s s s C dd C CC/ N d ~~Choo~~ ~QQ ~NNdd~ N CC dd~ JJ ~~zz d d d zz Cd d N" d o dÕ dCC z xC d ~w~ `C~ o~s d z Uw d d d C C C C s~w od ssdz s z84 d d w o ` s zwsz ~ w o sds44sww s CC~~~~~ ~~ sssssssssssssssssssdddddddssssssssssssssssssss444444444444ssssssswwwwwwwwwwww C z s 8 8 s dYC x 2 x x x , x @ 8 ; X @ 2 ~ C C , q X ~ x P 7 X P < P P , R x P 7 P < P P , ! < p ?7 2 ~ C C , ! XhX ~ p ?7 X d 2 ~ C C , 9 EzX ~ x 7 X X & 2 C C , S diX x 7 X 2 ! ! r A ) ` " m ' ı ^CCd~~ CCC~ CCCC~~~~~~~~~~CC h ~ so 8o k w ~ zCCCddCkskskJss00k0 ssssFdJso oo`YdY C ~~ ~~~CCCC ~~~~~~ d~z0 k k k k k ksksksksk80808080 s s s s s s s s s o k s s s o sws k k k k k k k ssksksksk s s s s s s s s80808080 `o kk0k0k0k?k0 s s s s s F F F d d d d~J~J~J s s s s s s oz`z`z` sk0 s F d~J o o s s s C dd C CC/ N d ~~Choo~~ ~QQ ~NNdd~ N CC dd~ JJ ~~zz d d d zz Cd d N" d n dÕ dCC w xC d ~o~ dC~ d~s k z Uw d Y Y C C C C o~k od ks zU s k80 d h o o~U s swkww Y~ k ` o s00skk ko CC~~~~~ ~~ ooooooooooooooooooo ssssssssssssssssssss000000000000ssssssskkkkkkkkkkkk C s s 8 8 k dYC xCourier 10cpi Univers (Scalable) Univers Bold (Scalable) Univers Italic (Scalable) Univers Bold Italic (Scalable) " m ' ı ^CCk~~ CCC~ CCCC~~~~~~~~~~CC h ~ so 8o k w ~ zCCCddCkskskJss00k0 ssssFdJso oo`ddd C$~~ ~~~CCCC ~~~~~~ d~z0 k k k k k ksksksksk80808080 s s s s s s s s s o k s s s o sws k k k k k k k ssksksksk s s s s s s s s80808080 `o kk0k0k0kTk8 s s s s s F F F d d d d~J~J~J s s s s s s oz`z`z` sk0 s F d~J o o s s s C dd C CC/ N d ~~Choo~~ ~QQ ~NNdd~ N CC dd~ JJ ~~zz d d d zz Cd d